Computational Complexity Theory and Circuit Complexity

This research on problems in complexity theory, has several particular goals: (1) improved (non-)hierarchy theorems for probabilistic time complexity classes and related models of computation, (2) improved characterizations of arithmetic circuits in terms of Boolean circuits and related classes, (3) increased understanding of the relation between the complexity of the determinant and other complexity classes, and (4) increased understanding of small-depth circuit complexity classes, such as ACC and AC.